Modeling, Analysis and Visualization of Non-Rigid Motion

Many applications of digital image understanding require modeling and analysis of flexible structures or turbulent fluid flow. Dr. Huang will supervise three graduate students working on perception and analysis of nonrigid motion in such applications as heart motion analysis for medical diagnosis, human face motion for intelligent image compression, and vortex tracking for interpretation of turbulent flow. Emphasis will be placed on concepts, methodologies, and techniques applicable to many types of nonrigid objects.